H- Summit Meeting; Albuquerque, New Mexico; January 1990, (Physics)

A workshop on the physics of the negative ion of atomic hydrogen will be held at the University of New Mexico January 9-11, 1990. It will emphasize experimental and theoretical results generated in the period since 1980, when a successful workshop on this same general topic was held at New Mexico. The workshop has attracted a field of outstanding participants, and a preliminary program received 12/12/89 confirms that the scientific agenda is broad and significant. Support at a reduced level is recommended to provide needed travel and subsistence for several participants.